Probability and Statistics for Ocean and Atmospheric Sciences (Atmospheric Science)

This project will involve the preparation of a graduate level text that will introduce concepts and techniques of stochastic modeling and statistical analysis in the contexts of ocean and atmospheric sciences. The text, which will be based in part on lecture notes prepared by the late R. Preisendorfer during his tenure at the Naval Postgraduate School in the G. Haltnier Research Chair, will fill an important gap in current scientific literature. The concepts and techniques that will be presented in the language and research settings of two allied geophysical sciences, provide basic tools for diagnosis, analysis and prediction of dynamical systems. Their presentation in this form will make them, and their relationships with the evaluation of hypotheses, more accessible in scientific terms. Interactive activities include seminars on subjects of Dr. Thiebaux's previous research, teaching two graduate level courses, organization of a workshop on professional careers in physical and mathematical sciences, and interactions with faculty and students in their customary university meetings. The courses and the discussions following seminars will complement the research component of the academic visit, while they provide open opportunities for interactions with students at a critical stage in the formation of their personal professional expectations. Finally, the workshop will provide a concrete look at career opportunities, with the inspiration of women who achieved major goals. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.